Experimental Systems: Baring It all Software: The MIT Raw Machine

EIA9810173 Anant Agarwal MIT Experimental Systems: Baring It All To Software: The MIT RAW Machine A Raw Machine is an architecture that may be suitable for billion-transistor chips. It combines a replicated set of processors with integrated configurable logic, coupled by point to point interconnect, and a compiler system that discovers and schedules instruction-level parallelism across the tiles. A Raw architecture eliminates the traditional instruction set interface and instead exposes the raw details of the hardware directly to the compiler. This project is evaluating a Raw architecture through simulation and compiler development. Research questions to be addressed include the balance of area devoted to memory, computation, and communication on the chip; implementation of a parallelizing compiler; extent to which static communication can be used by the compiler and run-time system; comparison with similar approaches such as multiscalar architectures and VLIW; and efficiency with which runtime software techniques can enhance the static Raw architecture.